Erosion of Passive Continental Margins: Thermal and Isostatic Implications

The primary geomorphological characteristic of many passive margins is an erosional escarpment which has migrated up to several tens of km inland since formation of the margin. Observed apatite age variation is a thermal response to denudational history, and together with the geomorphology, constrains theoretical models for erosion at passive margins. The PIs will develop models for erosion at passive margins. The overall objective of this research is to understand a) the process of erosion at passive margins, and b) the effect of erosion and its isostatic response in shaping the morpho-tectonic history of passive margins.